A Complementary Approach to Present-day Chemical Abundances in Galaxies

AST-0707911
Bresolin

Dr. Fabio Bresolin of the University of Hawaii and his collaborators will continue their work with eight-meter class telescopes, to measure some extremely faint auroral lines that are crucial to abundance diagnoses. Their objectives are twofold: 1) to derive direct abundances of the metal-rich regions of ionized hydrogen, found in the inner parts of nearby key galaxies; and 2) to measure metal abundances and element patterns of massive, blue supergiant stars in a sample of well-resolved spiral and irregular galaxies in the Local Group and beyond. The work will enable the measurement of chemical abundances in spiral galaxies and provide revealing insights into the physical and evolutionary state of galaxies and their constituents.

This project will benefit the large extragalactic astronomy community, by providing a lot of data for the development of theoretical models and an essential calibration of widely used strong-line abundance determination methods. The student training includes an international exchange program with Chilean partners.